The 1990 Southeast Regional Developmental Biology Conference, University of Virginia, Charlottesville, Virginia, April 26-29, 1990

This proposal requests funds to support the 32nd Annual Regional Developmental Biology Conference to be held at the University of Virginia on April 26-29. Five session topics, which concern important issues in modern developmental biology have been selected; they include molecular, cellular, and tissue development in both animals and plants. There will be two sessions on each topic, one in which 20 minute talks will be presented by junior faculty and one in which 10 minute talks will be presented by 5-6 postdoctoral and graduate students. In addition to the platform sessions, there will be poster sessions for both faculty and students. Three nationally recognized speakers will each give one hour keynote seminars. %%% In the past advanced graduate student sand postdoctoral fellows have found this meeting to be a particularly valuable opportunity to present their work in and informal atmosphere and to meet their peers and the faculty from nearby institutions.